Support to Attend the Fifth Symposium on Global Change Studies; January 23-28, 1994; Nashville, Tennessee

ATM-9319218 Halgren, Richard American Meteorological Society Title: Scholarship Support to attend 5th Symposium on Global Change Studies; 23-28 January 1994; Nashville, Tennessee This award supports 30 student in the earth sciences to attend the 5th Symposium on Global Change Studies at the annual meeting of the American Meteorological Society (AMS) in January, 1994. Topics at t he symposium will cover current research in global change and policy-related issues and science assessment.